Solar Flare and Solar-Interplanetary Phenomena Investigated with High-Energy Charged Particles

This investigation is designed to continue experimental and analytical studies of the large scale dynamical phenomena in the heliosphere resulting from the solar polar magnetic field polarity reversals , and to study solar flare charged particle acceleration in the present solar cycle. The first objective will focus on charged particles as probes of heliospheric magnetic fields, whose origin is the solar magnetic field carried throughout the heliosphere by the solar wind. The second objective will consist of experimental investigations for solar flare particle acceleration using measurements of the energy spectrum and elemental and isotopic composition of the solar flares obtained from spacecraft data. Both objectives will require extensive use of neutron monitors and of data from a network of instruments aboard several spacecraft. The proposed research will therefore include continued operation and maintenance of neutron monitoring stations at Climax, CO and Huancayo, Peru, with the possible addition of a new station in Maui, Hawaii. This latter station will eventually replace the one in Peru.